Application of Plant Biotechnology in Forestry: A U.S.-Indo Workshop, January 12-14, 1988, New Delhi, Award in U.S.and Indian Currency

Description: This project supports a U.S.-Indo workshop on application of plant biotechnology in forestry. The meeting which is organized by the Tata Energy Research Institute (TERI) in New Delhi and a U.S. team headed by Dr. Ralph Mott of North Carolina State University will cover the relatively specific aspects of biotechnology and genetic engineering that are more usable in forestry application. These include tissue culture techniques and genetic manipulation of woody plants, as well as study of the drawbacks to nitrogen fixation application in forestry. The workshop is designed to articulate the issues of transfer of scientific developments in biotechnology to field implementation programs, to identify specific gaps in the literature in this field and to compile recent contributions to fill this gap, and to identify specific research needs for possible collaboration. Scope: This project fits well the objectives of the U.S.-India program in its dealing with an area of science that is of great interest to U.S. and to Indian scientists and where the cooperating scientists are leaders in the field. The Indian institution TERI is a relatively new private research organization with extensive ongoing research programs in areas of energy including heavy emphasis on forestry and biomass. It has a large well trained staff most of whom have extensive research background in biotechnology. The U.S. scientists are active researchers in the field of biological sciences and its application to forestry. The meeting is likely to stimulate strong collaborative research.